Travel Support for the XIV International Conference on Magnetic Resonance in Biological Science, Warwick, England, September 9-14, 1990

The International Conferences on Magnetic Resonance in Biological Systems has been held every two years since 1964. Over the years, these conferences have played an extremely important role in promoting the development and application of a variety of magnetic resonance techniques to the solution of biological problems, and are clearly recognized as the premier international meetings in this important field. The XIVth meeting will be held in England in September, 1990. It will cover the latest advances in the fields of NMR and ESR including (1) protein and peptide structure and dynamics; (2) 3D structure from 2D NMR; (3) metalloprotein and electron transfer; (4) biological membranes and (5) magnetic resonance imaging.